Presidential Young Investigator Award

This is a PYI application from an Acting Assistant Professor of Electrical Engineering. Dr. Nishimura received his Ph.D. from Stanford in 1985, and has been at Stanford since then. He has numerous publications in the area of nuclear magnetic resonance imaging. His goal is to develop new ways of acquiring and processing signals in order to achieve improved imaging. He will concentrate on imaging flow, a vitally important area both scientifically and clinically.